Analysis and numerical computations of moving boundaries in fluid dynamics and materials science

0104350
Siegel

This proposal is concerned with the analysis and numerical computation of
moving boundaries in problems from fluid dynamics and materials
science. The proposed problems are motivated by different applications
but are remarkably similar from a mathematical point of view. One class
of problems concerns the deformation and breakup via tip streaming of
drops and bubbles in extensional flows. Tip streaming refers to the
phenomenon where a bubble develops a deformed shape featuring
cusplike ends, from which fine filaments or small bubbles are emitted into
the exterior fluid. Experiments suggest that interfacial tension gradients
such as those produced by surfactants are important for the onset of this
instability. The PI shall continue his development of an analytical theory
for the deformation and evolution of slender bubbles with surfactant,
focusing on the effects of soluble surfactant and its influence in tip
streaming. Mathematical difficulties in the analysis are associated with a
jump in boundary conditions at "stagnant caps" of surfactant on the free
surface. Techniques employed to address these difficulties include
singular perturbation theory, theory of singular integral equations and
Riemann-Hilbert problems, and complex variable theory in moving
boundary problems. The theory will be complemented by accurate
numerical computations. The PI also proposes to investigate tip streaming
and air entrainment in simple models of fiber coating, as well as cusp
formation and a possible analogue of tip streaming which may occur
during the diffusion controlled evolution of voids in a stressed solid. The
mathematical statements of these free boundary problems are similar, and
the PI expects that there will be a certain synergism between them.

Moving boundary problems, such as the evolution of waves on water, the
propagation of flame fronts, or the growth of crystals, continue to
challenge applied scientists and engineers. The PI proposes to study a
class of fundamental moving boundary problems that are important in
technological applications. A common feature among the proposed
problems is that the moving interface develops very small-scale features,
such as cusps or very fine filaments, which can then greatly influence the
properties of the material or fluid. One application of the proposed work is
in the coating of materials (such as optical fibers) by pulling at high speed
through a liquid bath. Air filaments produced during the coating process
can snap off, leaving voids or other blemishes that adulterate the coating.
A second application is in the failure of materials. Small pores present in
materials evolve (via atomic diffusion) when the material is stressed. Cusp
development in the pores can initiate cracks or dislocations (misalignment
of atoms); this has been implicated as a prominent cause of failure in
microelectronic circuits. Other applications include emulsion formation
and mixing in multi-component fluid systems.